ITR: Tools For High-Performance Simulation of Granular Materials

This grant is for the development of computational tools for
simulating very large-scale problems involving granular flow.
Rather than use a continuum model of a granular material (which
involves a large number of assumptions and approximations about the
way they behave), rather we look at the computational challenges in
discrete element models.
These are challenging large-scale problems with thousands to millions
of grains that have to be simulated.
Direct interactions are usually between touching grains.
However, one grain can not only affect the others that it touches, but
those will affect their neighbors, and so on.
Further, the network of interactions is dynamic.
Indeed, the overall pattern of interactions can become very
different depending on the circumstances: if a sand table is shaken,
then most of the sand grains will be independent; when the grains
settle, each grain will be touching many others.
In order to efficiently organize the computational tasks, we need to
use techniques from graph or network theory.
These tools include graph partitioning techniques, graph coloring
techniques, and new techniques for handling the collisions of grains.
Since the problems are very large scale, currently available
techniques often have to be adapted from dealing with small-scale
problems to deal with large-scale problems.
Furthermore, since the network of interactions is dynamic, these
techniques have to be adapted to use information about the previous
network in order to efficiently obtain the corresponding information
about the new network.
In this project, we will be developing these tools and drawing
techniques from graph theory, continuous optimization, complementarity
theory, and computational geometry.

Granular materials are materials made of small, relatively hard
objects that collide off each other.
Sand, breakfast cereals, talcum powder, and a box of marbles are all
examples of granular materials.
Understanding these materials and simulating their behavior directly
is difficult because the position and velocity of each of the
``grains'' in the material needs to be tracked and updated as they
move and collide.
In order to do this well, we need high-performance computers, and we
need to use them well.
The crucial problem is to understand the nature of the interactions
between the grains, and to develop automatic tools that can determine
how to divide the computational tasks so that they can be tackled
efficiently on high-performance and parallel computers.